The Essential Nature of Unique Features of the Rural Systemic Initiative

Inverness Research Associates will hold a workshop for Principal Investigators (PIs) and Project Directors (PDs) of new and mature Rural Systemic Initiatives (RSIs), and will produce and distribute workshop proceedings in the form of a monograph afterward. The workshop will foster and capture discussions among RSI key personnel who have been with the program since its inception, and with key personnel of Initiatives that have more recently received funding. The discussants will share "lessons learned" about strategies, methodologies, and results that have been gleaned from five-plus years of involvement with systemic reform.